SGER: Discovery of Research Trends and Classification in Domain-Specific Text: Application to Nanoscale Science and Engineering Field.

ABSTRACT

The objective of this exploratory project is to develop and evaluate a system to extract, categorize, and analyze awards focused on nanoscale science and engineering. The PI will explore methods based on knowledge data discovery techniques to advance the state-of-the-art for extracting, analyzing, understanding, and digesting information about a complex research area from large semi-structured data. The areas of focus will be on discovery of topics and research trends and classification of data with respect to the topics under consideration. For the test case, the abstracts of 250,000 NSF awards available on the web will be used as the overall data where both technical merit as well as broader impact will be analyzed.